Benefits of Math and Science for Non-College Bound Youth

The proposal focuses on the effect of math and science skills learned in high school on the later earnings, employment, and education of non-college-bound youth. While analyst have given considerable attention to the effect of taking math and science on getting into the pipeline to college, little attention has been given to the effects of math and science for non-college-bound youth. At the same time, the employment and earnings of non- college-bound youth have both fall substantially, causing serious concern among policy makers. The proposed study will be based on the High School and Beyond Survey which covers a complete decade after high school allows for detailed analysis of types of importantly, the survey data cover recent years when the drop in the earnings of non-college-educated people has been quite severe. This work should provide valuable insights into the impact of math and science skills learned in high school on outcomes later in life for the large portion of youth who are non-college- bound and are after overlooked in other work.